Interdisciplinary Molecular Biology Facility

This award provides funds for the purchase of an automated peptide synthesizer and associated purification equipment. This instrumentation will complement existing instrumentation in an interdisciplinary molecular resource center at the University of Rochester School of Medicine. The core facility will serve active research in DNA and cDNA cloning, site-directed mutagenesis, regulation of gene expression and structural and functional characterization of proteins. Specifically the instrumentation will benefit ten primary and fifteen secondary faculty as well as nine newly recruited faculty. The investigators are engaged in high-quality research, are productive, and have excellent extramural funding.